A Computational Laboratory/Classroom Learning Environment for Mathematics Majors

9452213 Betounes This project is to create a computational laboratory/classroom learning environment for three senior level mathematics courses: Partial Differential Equations, Differential Equations, and Advanced Engineering Mathematics. This laboratory is enabling the students, through experimentation and investigation, to enhance their comprehension of the subject matter in these courses. A novel feature of the project is the use of portable computers, as well as fixed laboratory computers, to augment the students' learning process.